SBIR Phase II: New devices Bioaerosol Sampler for Accurate, Time-Resolved Characterization of Viable Microbes and their Genomes

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) project is to provide general commercial access to a new generation of affordable, high-efficiency aerosol samplers that will primarily be used in the Industrial Hygiene and Indoor Air Quality market. The collection technology in these new instruments is unique in that it captures, concentrates and preserves airborne microbes in the same physical state they exist as they are suspended in the air we breathe- a tremendous breakthrough for forensic aerosol analysis. This work optimizes a novel collection method that chronologically resolves air samples into a portable compact platform, which ensures purity, minimizes handling and is safe for mail. The sample output is delivered in small, sterile medical grade disposable plastics that are compatible with a broad range of users' analytical needs whether it be the military, health care, atmospheric researchers or indoor air quality sector. This instrumentation is portable, and requires no filters or chemical additions; it rapidly condenses airborne microbes out of ambient air by manipulating humidity, offering a reliable way to assess microbiological air pollution-indoors or out.

This SBIR Phase II project proposes to optimize the design of condensation growth-based bioaerosol samplers for commercial validation, rapid manufacture and high-quality reproduction. The accurate assessment of airborne biological agents remains a tremendous scientific and practical challenge. The intellectual merit of this work lies in finally overcoming the technical barriers posed by conventional air sampling equipment, which require extensive sampling time and significantly compromises the very information military, medical and building science professionals need: what is the identity, distribution and abundance of airborne microbes. This team will use the latest forensic genetic sequencing technology to isolate the detection limits of this new collection equipment for common airborne pathogens and allergens. The objective is to validate these new filterless aerosol recovery instruments in controlled laboratory experiments, with a broad range of common pathogenic bioaerosols. The team will demonstrate how the sample preservation benefits of this technology, can be realized for commercial benefit in monitoring high-density indoor environments, including health care settings and public schools. Operating this new equipment in occupied indoor spaces, we anticipate collecting bioaerosol in excess of forensic detection limits in less than 30 minutes, while maintaining exceptional sample fidelity.